NBER Annual Macroeconomics Conference to be held in Boston, MA 1997-1999

This grant provides continued support for a series of annual conferences on macroeconomics. The conference series is aimed at bridging the gap between frontier reserach in macroeconomics and policy analysis. Past conferences have made a significant contribution to the testing of empirical implications of new theories as well as the use of relevant theory to analyze policy issues of current interest. The conference series will continue to encourage the writing of empirically oriented papers by both established and promising young economists. In addition, the series will continue to serve as a forum for communication among economists from the different schools of macroeconomic thought. The annual conference volume has become a widely cited and influential research reference.